Remote Measurements of Haze Layers Over the San Joaquin Valley of California

The objectives of this research include improvement of the correlation between atmospheric spectral data and the haze index, and determination of the temporal and spatial variations of haze layers as steps toward being able to map them. The San Joaquin River Basin has been selected as the site for this study because of its large variations in climate and evaporation, high occurance of haze, and ready availability of information and data relating to the variability and composition of haze. Results of this project may be directly applicable to land and water resource management and in conduct of atmospheric modeling and studies of air pollution.